STTR Phase II: Ultrasonic Product Release-Testing Equipment for the Design, Development, and Advanced Continuous Manufacturing of Pharmaceutical Tablets

The broader impact of this Small Business Technology Transfer (STTR) Phase II project is potentially profound and could offer a transformative approach to quality assurance in pharmaceutical manufacturing that directly targets medicine supply chain vulnerabilities and cost structure in the United States. It aims to modernize the quality testing of the most widely used pharmaceutical dosage form—tablets—through rapid ultrasonic testing techniques and innovative automation/robotics. This advancement may reduce the risk of quality failures, drug shortages, and recalls, ensuring more reliable access to essential medications for the public. Nearly 70% of Americans rely on prescription drugs, with a significant portion of these medications currently produced overseas. The project’s commercial impact is in its potential to redefine quality assurance practices in the pharmaceutical industry, leading to improved efficiency, reduced costs, and enhanced product safety. Such improvements can contribute to national health security by reducing dependence on unreliable foreign drug manufacturing. Its societal benefits include improved healthcare outcomes through more dependable drug availability. Furthermore, the project offers significant educational benefits, providing hands-on training and research opportunities for students in advanced manufacturing technologies. The project focuses on inclusivity, attracting underrepresented groups into engineering, and fostering diversity in advanced research and innovation in pharmaceutical manufacturing.

The proposed project aims to address the critical gap in the pharmaceutical manufacturing industry regarding the outdated quality assurance methods and equipment currently employed in producing compressed pharmaceutical tablets. The primary research objectives are to develop and validate innovative ultrasonic quality assurance and testing equipment that enables rapid, non-destructive, real-time release testing of pharmaceutical tablets. This NSF STTR II project seeks to overcome the limitations of existing manufacturing and quality assurance technologies by employing novel approaches and associated mathematical modeling techniques, including machine learning (ML), to analyze tablet microstructures for quality assurance. The research involves detailed mathematical modeling of the interactions between ultrasonic waves and the viscoelastic properties of tablet materials, leveraging both first-principles physics and ML-based modeling approaches. The anticipated technical results include the development of a reliable, cost-effective solution for the pharmaceutical industry, enhancing the quality assurance process for tablet manufacturing through improved accuracy, efficiency, and scalability. The project represents a significant advancement in the field, supporting the FDA’s initiatives towards continuous manufacturing, Quality by Design, and Process Analytical Technology.